Interactive Ray Tracing for Visualization

Visualization systems are most effective when the user can interactively explore the data by varying the viewpoint and visualization parameters via direct manipulation. However, visualization applications fre-quently deal with extremely large datasets, so such interaction is often impossible. In addition to being large, these datasets often have high depth-complexity and non-polygonal primitives, which makes them poorly suited to most current graphics accelerators. This project will investigate the use of ray tracing vi-sualization applications. By exploiting parallelism and image-based-rendering (pixel reprojection) this project can create a system that is both interactive and responsive for very large datasets. In addition, the programmable nature of such a system will allow improved rendering effects such as shadows and transparency, and sup-port for non-polygonal primitives such as glyphs and volumes. To test the relevance and performance of this system the project will be tested in several application areas: medical visualization, fluid flow visualization, terrain visualization, and bioelectric modeling visualization.